Postdoctoral Fellowship: MSPRF: From Short to Long Time Scales; Randomness and Structure Preservation in Computational Mathematics for Nonlinear Dispersive PDEs.

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Yvonne Alama Bronsard is “From Short to Long Time Scales; Randomness and Structure Preservation in Computational Mathematics for Nonlinear Dispersive PDEs.”. The host institution for the fellowship is the Massachusetts Institute of Technology and the sponsoring scientist is Gigliola Staffilani.